A Formal Approach to Data Stream Processing

IIS-0621438
Johannes E Gehrke <[email]>
Cornell University

Developing Formal Semantics for Data Streams

In many applications, for example stock monitoring to large-scale system
monitoring, data is not static but arrives in high-speed data streams. Unlike
in traditional Database Management Systems, research in data streams has been
driven by the development of many application-specific systems and languages.
The result has been a plethora of stream query languages, with no unified
formal framework for optimization or general study.

This project is developing a formal semantics to unify data stream query
languages, like what already exists for traditional relational databases.
This project is (1) developing a formal data stream language powerful enough
to encompass all of the existing data stream query languages, (2) using this
framework to identify the expressive power of these existing languages, and
(3) developing a language hierarchy within this framework that identifies the
trade-off between expressiveness and performance. The proposed educational
program will train a graduate student for research in the theory of data
streams. Success in this project will bring tremendous benefits to data
stream processing, as it will provide a uniform framework for studying
optimization of data stream queries. It will also connect the area of
mathematical logic with data stream systems, a connection that has already
been shown to be beneficial for traditional database systems. Our results
will be disseminated via the following website:
http://www.cs.cornell.edu/database/cayuga/expressiveness/.